Circumpolar Education Clearinghouse

An organization, the Circumpolar Education Clearinghouse, will be established to link educators and organizations concerned with the education of native northern peoples into a network for the exchange of information and other educationally useful activities. Initial participants in the Clearinghouse will be from the United States, Canada, Greenland, and the Scandinavian countries. The Clearinghouse, including its library, will be headquartered in the Alaska Native Foundation in Anchorage. The Education and Resources Group in Boston will also utilize its facilities and some staff members to support the project. Program components include establishment of the Curriculum Library, a semiannual newsletter, a conference in Alaska in 1990, and visits by Canadian, Greenlandic and Sami educators to Alaskan schools. National Science Foundation (NSF) funding will primarily be used to improve science and mathematics instruction in the elementary and secondary schools of rural Alaska. Cost sharing by the partners will total 89% of the NSF funding.